Static Verification for Fearless GPU programming

Programming Graphics Processing Units (GPUs) is an art currently reserved to a
select few experts, as unlocking the full potential of these devices requires
mastering an intricate hardware architecture and execution model. Scientists and
domain experts need to adapt their algorithms to a programming model where
simply changing the order in which data is accessed can have a 10× performance
overhead, and off-by-one errors can silently corrupt their data. The intent of
this project is to develop an infrastructure of complementary code analysis
techniques that include bug prevention, performance profiling, and bug
repairing. The project's novelties are in developing a holistic understanding of
performance and safety bugs, which considers the interactions between various
classes of bugs. The project's impacts are on making GPU programming more
accessible, by providing tools to all programmers that simplify understanding
parallel programming and hardware architectures, thus enabling algorithm
correctness and more in depth performance analysis. An outcome of this project
is improved developer productivity and software sustainability, as the project
aids in writing correct and highly efficient GPU programs without sacrificing
either objectives. There is an expectation of interest from industry (e.g., autonomous
mobility, artificial intelligence applications) as well as from academia and
national laboratories. The research lowers the barrier to entry of GPU
programming, so it is expected to widen the suitability of GPUs to more fields. The
tools that result from this project can empower students to understand bugs in
their code autonomously, leading to a more focused pedagogical experience
between the instructor and the student.

This project advances the state of the art of static verification for GPUs and
other accelerator architectures, both in terms of correctness and performance
analysis. Static verification aims to assess the requirements of software
without executing the program. Existing solutions suffer from a high rate of
false alarms, cannot handle large codes, or are unsound. Most importantly,
existing approaches either address performance or safety, but not both at once.
A key aspect of this project is an underlying static verification
infrastructure, a collection of analysis backed by theoretical results, that
enables novel and efficient tools that better our understanding of existing
software. Such verification infrastructure is built around a novel and general
intermediate representation based on behavioral type theory, which codifies,
structures, and enforces the meaning of parallel programs. The project expands
our formal understanding of GPU programming models, by introducing safety
properties, semantics preserving transformations, and behavioral equivalences,
all fully mechanized using a proof assistant.